Light Induced Processes in the Condensed Phase

The dynamic responses of unique molecular materials will be investigated using femtosecond optical and infrared methods to reveal the nature of ultrafast processes occuring in materials that include molecular crystals, polymer glasses and crystals, and metal complexes.